Collaborative Research: Towards a Unified Framework for Decoding Algorithms: Unveiling the Hidden Connections

The design of efficient, and low complexity, coding and decoding algorithms is a critical component in
the optimization of wireless and wire-line networks. Recent years have witnessed the emergence of new
powerful paradigms, e.g., belief propagation, as well as the revival of classical approaches, e.g., sequential
decoding, for the design of decoding algorithms. This proposal seeks a deeper theoretical foundation for the
design and analysis of efficient decoding algorithms, along with the associated code ensembles, by building
on this recent progress.
The overarching goal of the proposed research is to unify under one framework the class of algorithms
that exploit the power of local constraints, e.g., the linear programming or belief propagation decoders and
generalization thereof, with the class of algorithms that optimize a global cost function, e.g., tree search
decoders. The proposed research benefits from our preliminary results that establish interesting connections
between different decoding schemes (as detailed in the sequel). Our results are expected to elucidate the
properties of known algorithms and inspire the design of more powerful decoders. Our investigations
will start with the traditional point-to-point scenario where the complexity of the model ranges from the
simplified binary erasure channel to the challenging multi-path fading channel. In the latter case, our
work will target a joint detection and decoding approach and consider, explicitly, the associated signal
processing tasks, e.g., the preprocessing stage which will be defined rigorously in the sequel.
Our research will then proceed to investigate three distinct categories of multi-user channels. The
first thrust will focus on the outage-limited multiple access channel where efficient decoding algorithms
that achieve the optimal diversity-multiplexing tradeoff will be pursued. The same line of work will also
seek code ensembles and decoding algorithms that achieve the capacity of the compound multiple access
channel (CMAC), one of the few examples where the celebrated successive cancellation decoder fails to
achieve capacity. The CMAC model captures the essential characteristics of delay-limited multiple access
channels with limited transmitter channel state information. The study of the broadcast channel (i.e.,
downlink) is our second research thrust where low complexity and high performance dirty paper codes
and rateless codes will be constructed. Within this context, classical works on tree search source coding
will be revisited in order to construct low complexity vector quantization stage for the dirty-paper coding
scheme. The third research thrust will be devoted to cooperative channels. Here, our efforts will seek
to characterize the diversity-multiplexing tradeoff of the cooperative interference channel along with the
associated optimal coding and decoding algorithms. This work will build on the intimate relationship
between the CMAC and the interference channel. Finally, inspired by our recent work in the area, novel
approaches for cooperative lattice coding and decoding algorithms will be unveiled.
The intellectual merit of the proposed research lies in the fundamental nature of the posed questions
and the expected contributions to information and coding theories. New bridges between information
theory, from one side, and optimization and algebraic number theories, from the other side, will be built.
Furthermore, analytical tools, as well as efficient numerical methods, that aid in the design and analysis
of decoding algorithms will be pursued.
The PIs, with collective expertise in information theory, coding theory, wireless communications, and
signal processing, form a qualified team for undertaking the research plan. This project builds on recent
results from the PIs' ongoing collaboration. The proposed theoretical research is expected to have a broad
impact on the information theory and signal processing communities. Furthermore, the anticipated results
will contribute to the design of efficient encoding/decoding algorithms which percolate through many
applications (please refer to the support letters from Texas Instruments and ST Microelectronics). On the
educational front, graduate students at the two participating institutions will be heavily involved in the
research activities.